GT-SUPREEM: The Georgia Tech Summer Undergraduate Program of Research in Electrical Engineering for Minorities

The Research Experience for Undergraduates program at Georgia Institute of Technology is an eight week summer research program designed to attract qualified minority students into the field of electrical engineering. Ten students of at least junior level undergraduate standing will be recruited on a nationwide basis and paired with both a faculty and a graduate student mentor to undertake research projects in the Georgia Tech School of Electrical Engineering. The students are housed on campus, and in addition to lodging and a travel allowance, are provided with a $1500/month stipend. At the conclusion of the summer, the students are expected to prepare both oral and written summaries of their research projects.